The Great Immensity

The Civilians, Inc., a theatre company in Brooklyn, NY, is producing The Great Immensity, a touring play with songs and video that explores our relationship to the environment, with a focus on critical issues of climate change and biodiversity conservation. The play has been created with a network of partners including the Princeton Environmental Institute and Princeton Atelier Program/Lewis Arts Center, which will maintain an ongoing relationship with the project. The play uses real places and stories drawn from interviews conducted by the artists to create an experience that is part investigative journalism and part inventive theater. Attendance at the performances is projected to be about 75,000.

A major goal of the project is to help the public better appreciate how science studies the Earth's biosphere and to promote an inquisitive curiosity about our place in the natural world. The initiative also intends to create and evaluate a new model for how theater can increase public awareness, knowledge, and engagement with important science-related societal issues.

Project deliverables include the development and testing of online content, podcasts, and videos as well as special community education and outreach efforts in each community where the play is staged. Performances will be accompanied by post-performance panel discussions with the artists, local scientists and policy makers. After the completion of the initial tour, the play will be published, licensed, and made available to other theaters to produce independently.